Research in Particle Physics

This grant covers experimental Elementary Particle Physics research by a group at the University of Cincinnati in collaboration with other NSF and DOE supported scientists. The group will study quark and lepton interactions in a series of experiments at Stanford, Fermilab, and other accelerator laboratories. These studies have the potential for unique measurements in both electroweak and heavy quark physics.